Qualitative Properties of Nonlinear Elliptic and Parabolic Equations

DMS-9970530
Congming Li

ABSTRACT

The PI proposes to study qualitative properties of nonlinear

elliptic and parabolic partial differential equations (PDEs), such

as the existence, uniqueness, stability, symmetry, a priori estimates,

and asymptotic behavior of solutions. This type of research is

fundamental to the understanding of many physical problems governed by

PDEs. The PI's will continue the development of a class of very

powerful techniques, namely the Method of Moving Planes, to the study

of local asymptotic symmetry of singular solutions and a priori

estimates of solutions. The PI will also continue the joint work with

W. Chen on the geometric problem of finding a conformal metric with a

prescribed Gaussian or scalar curvature. The PI is also involved

in the study of certain parabolic systems arising form other branches

of sciences.

Many aspects of natural phenomena are related to each other by the

natural laws governing them and very often these relations are

mathematically described by differential equations. The study of these

equations is very important in understanding the related phenomena.

It is often the case that to solve differential equations

computationally with sufficient accuracy, the most effective and

economical way is to exploit the properties of solutions of the

equations and then to develop algorithms in accordance}. Besides being

very useful in applied science, the study of various kinds of

structures and properties of solutions to various types of equations

invariably leads to new research endeavors.